Interfaces in Superconducting Ceramics on Buffered Silicon Structures

This proposal plans to investigate the interfaces between the high Tc superconductor oxide film and other material media. The high Tc superconductor oxide film, deposited on a yttria-stabilized zirconia (YSZ) buffered silicon substrate. This 2-terminal device structure is characterized electrically by the I-V and C-V measurements. The high Tc superconductor oxide is of the ytrrium- barium-cupric oxide (YBCO) type. Deposition is made by the pulsed deposition (PLD) method. Processing parameters will be varied and the resultant 2-terminal device structures will be probed of their interface bahaviors. %%% This research will provide information to the understandings of the interfaces between the high Tc superconductor oxide film layer and other material media in a 2-terminal device structure. Electrical characterization of the 2-terminal device structure, through the I-V and C-V measurements, will provide information which can suggest future improvements in the performance of the device structure. It will enhance the potential usefulness of superconducting devices.